Presidential Young Investigator Award: Rheology, Adsorptionand Structure of Micelles, Emulsions, Colloidal Suspensions and Polymer Solutions

This research is aimed at developing an understanding of the physical properties of dispersed systems such as emulsions, micelles, colloidal suspensions, and polymer solutions. One thrust of this research is a quantitative study of block copolymer adsorption. Systems under study include polar-nonpolar block copolymers currently in use as pigment stabilizers. Another aspect of this project is a statistical mechanical model of the structure in electrorheological (ER) fluids. These fluids exhibit dramatic changes of their rheological properties upon the application of an electric field.